Genetic Analysis of Bacterial Histone-Like Proteins

The objective of this project is to study the role of histone-like proteins in the organization and folding of the bacterial chromosome in Salmonella typhimurium. Our approach will be to use genetics to explore in vivo the contribution of these proteins to chromosome structure and their interactions with other cell proteins. Our goal is to achieve genetic control over each of the proteins which contribute to chromosome structure so that the problem can be studied as an interactive process in vivo. We will pursue a number of genetic selections to look for compensatory mutations which describe interactions with the major bacterial histone-like protein HU. We will use the combined approach of molecular biology and genetic selection to identify and characterize members of this protein class. We also will use in vivo genetic tools to study the regulatory interactions of these proteins. Finally, we will begin to look at the effects of these DNA scaffolding proteins on supercoiling and their interactions with such catalytic protein determinants of chromosome structure as topoisomerase and gyrase.